Proceedings of Wood Engineering in the 21st Century: Research Needs and Goals

9802059 Fridley This award supports the publication of the Proceedings of a Conference on Wood Engineering in the 21st Century: Research Needs and Goals. ***